Problems in Regularity Theory for Nonlinear Partial Differential Equations

The proposal is aimed at the study of regularity properties of solutions
of various systems of nonlinear partial differential equations. These include:
(i) Quasilinear elliptic systems arising as Euler-Lagrange equations
of general multiple integrals in the Calculus of Variations and
hyperbolic systems of conservation laws. Questions arising in the study of
regularity of solutions of these equations will be studied from the point
of view of the theory of Compensated Compactness, which provides a unifying
platform for approaching these seemingly diverse problems.
We expect that new methods in Compensated Compactness recently developed
by Stefan Muller and the PI will enable us to give answers to some relatively
old open questions.
(ii) The Navier-Stokes equations. Here we plan to study both the interior
and boundary regularity for important special classes of solutions.
The motivation for these investigation is the following: since regularity
questions for general solutions are notoriously intractable, it will be useful
to study some non-trivial special cases. Hopefully this will provide
insights for the general case.
We also plan to study the relationship between Morrey's quasiconvexity
and local ellipticity conditions for functions on two by two matrices.
This problem has recently been linked to some old and difficult conjectures
in Harmonic Analysis and the theory of quasi-conformal mappings, and we expect
that the interaction of ideas from these different areas will be fruitful.

The main aim of this proposal is the study of regularity properties of
solution of nonlinear partial differential equations. Such equations
appear in many models of the real-world processes. The task of
mathematicians is to solve these equations. Often this
is done by a numerical simulation on a computer. To be able to do
such simulations in a reliable way, one must know something about
the qualitative behavior of the solutions. For example, if we expect that
the solutions will oscillate wildly over small distances, we might need
a different method than in the case when the solutions change only
slowly. Roughly speaking, one of the main task of regularity
theory is to develop methods which would enable us to reliably
predict the behavior of the solutions, so that we can then choose
adequately the methods for solving the equations.
The proposed research will hopefully improve our understanding
of these difficult and important questions.